(GK-12) Graduate Teaching Fellows: Human Impact Along the Front Range of Colorado

The University of Northern Colorado, Colorado State University, Weld County School District 6, and the Poudre RI school district propose a collaborative to support fellows in SMET disciplines and discipline-based education. Our teaching and research themes focus on Human impacts on land use and ecosystem structure andfunction along the Front Range of Nortitern Colorado.
Objectives and Activities:
Form Teaching-Research Teams - of teachers, fellows, and researchers that will interact throughout the year, for up to 3 years.
Conduct Teaching and Research Strategy Workshops - to familiarize teachers, researchers and fellows ,%ith each others culture.
Conduct Grant Writing Workshops - for the teachers and fellows for professional development and sustainability.
Develop Schoolyard Research Plots - based on the research experience. Teachers and fellows will establish schoolyard plots.
Apply,4ge-,4ppropriate, Standards-Based Modules - will be developed to link the research to the classroom.
Benefits include:
Fellows: I)GuidefellowstoincludeK-12outreachasacareergoal,2)lmprovedcommunication- teaching-related skills, 3) Financial stability, and 4) bnprove grantsmanship.
K-12 Teachers: 1) Connect with the research community, 2) Professional development (travel, credit, stipends), 3) Improve classroom resources (supplies, equipment technology), 4) Schoolyard sites, and 5) Provide additional classroom help via the fellows.